Engineering Creativity Award: Processing and Device Applications of Advanced Semiconductor Materials

The research deals with a new type of double-spectrometer which allows a direct correlation of complex quenching effects observed in optical absorption and photo-electron Paramagnetic Resonance work on Gallium Arsenide. The study centers on the characterizing native defects in Gallium Arsenide. One important native defect is referred to as EL2. The research is to identify the origin of EL2 and to gain control over its concentrations in Gallium Arsenide crystals. This project is one supported under the Creativity Awards for Engineering Students. This project is one supported under the Creativity Awards for Undergraduate Engineering Students.